Animals Eat: An Interactive Museum Exhibit For Elementry School Children

The Brooklyn Children's Museum will create a 3,000 square foot natural science exhibition, "Animals Eat", that will provide interactive experiences that assist children in formulating appropriate concepts of living things. The exhibition and accompanying educational materials will be targeted at children aged 7-10 years old, and will utilize recent research on how children conceptualize biological phenomena. It will focus on familiar animals and on the processes of eating because many observable aspects of the natural world are mediated by the quest for food. The exhibit, capitalizing on existing living collections, will be developed and designed using a variety of interview techniques and formative testing of exhibit prototypes to insure that the content is both appropriate for children and that the exhibition results in successful learning experiences. A broad range of exhibition techniques, including museum objects, interactive units, games, and video will be used. The exhibition will reach more than a million visitors during its five year life. "Animals Eat" will be the first in a series of new core exhibitions at the museum. NSF's award will be supported by more than $320,000 in cost sharing.